Oceanographic Instrumentation, R/V Cape Hatteras

A request is made to fund additional and back-up instrumentation for the
R/V Cape Hatteras, a 136-ft long research vessel owned by the National Science Foundation and operated by the Duke/UNC Oceanographic Consortium as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Four items were submitted for review. In order of priority they were:
1) HiSeasNet Installation
2) ROV
3) Ultra-cold Freezer
4) Mega Corer

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.